MRI: Acquisition of an NMR Spectrometer and Upgrade of an Existing NMR Spectrometer

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Nevada in Reno will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer and upgrade an existing 500 MHz multinuclear NMR. This equipment will enable researchers to carry out studies on a) the design and synthesis of complex organic molecules; b) the synthesis, characterization, binding and luminescent properties of metallocryptands; c) the synthesis, structure and reactivity of organometallic complexes with emphasis on those applicable to aqueous/biphasic catalysis; d) the designed synthesis of one-dimensional benzenoid nanostructures; e) the stereochemistry of bilirubin and its carboxylate anions in organic and aqueous media by heteronuclear NMR; and f) the behavior of transition and main group metals in biological systems.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry, nanoscience and biochemistry.